Improvement of Laboratory Instruction in the Materials Testing Laboratory

The aim of this project is to improve instruction in four different courses that utilize the Materials Testing Laboratory. The equipment includes an Automatic Testing System, and Electro-Mechanical Testing System, troptometers, strain gauge, and various fixtures. The microprocessor-based Automatic Testing System upgrades the existing 200,000 lb. Universal Tester to state of the art as found by graduates in high tech industries in the area. The Electro- Mechanical Testing System extends the capability of the laboratory into polymers, ceramics and composite testing in keeping with the growing importance of these to surrounding industries and research centers. Experiments taking advantage of these new capabilities are incorporated the curriculum of several different degree programs. The award is being matched by an equal amount from the principal investigator's institution.